Conference on the Future of Commercial Biotechnology

The American Enterprise Institute proposes to convene experts in the science underlying biotechnology, applications in biotechnology, analysis of risks and benefits of biotechnology, international trade and the regulatory environment to discuss the issues and outlook for the future of biotechnology. The papers and highlights of the ensuing discussion will be published for wider distribution. Those slated to speak or participate on panels are highly qualified, and this type of discussion is important to the continuing development of commercial biotechnology. An award for partial support of the conference is recommended.